Analysis of Equations in the Applied Sciences

Zheng
DMS-0603859

The investigator studies the Euler equations modeling
inviscid fluids, Cahn-Hilliard and Ginzburg-Landau equations in
phase-field modeling of alloys, and nonlinear variational wave
equations modeling liquid crystals. His objectives are to gain
both better understanding and simplifications of complexity
(which includes complexity reduction for multi-dimensional shock
reflection problems), of the effect of solutes on the enhancement
of strength of alloys, and of the mechanism of singularity
formation in air, water, and liquid crystals. The methods
include hard, soft, and asymptotic analysis, numerical
computation, and techniques of mathematical modeling. The
mathematical issues are fundamental for the understanding of the
respective subject areas. For instance, a model is sought in
multi-dimensional shock reflection problems to reduce possible
turbulence and thus bring the complexity to a comprehensible
level and settle the von Neumann paradoxes (e.g., the paradoxical
boundary between regular shock reflection and Mach reflection).
The issue in the phase-field model of alloys is to provide a
quantitative as well as qualitative foundation for manipulating
solutes to strengthen the alloys. Study of these mathematical
issues (1) yields new understanding regarding alloys, liquids,
gases, and liquid crystals, which are critical for the
advancement of many engineering sciences such as solid solution
hardening, aerospace engineering, robot designing, and energy
efficient devices; (2) provides advanced training for graduate
students or postdoctoral researchers; (3) enhances collaboration
and cross-training between mathematics, material research, and
physics, thereby establishing a foundation for training students
in this broad area.

The investigator studies some applied mathematical problems
in fluid dynamics (which includes the motion of air and water),
modeling of alloys, and liquid crystal physics in material
science. Scientists and engineers have used mathematical
equations, called partial differential equations, to model
motions or evolution. The turbulent nature of fluid flows,
defects in materials, and the complexity of life show up in the
form of singularities and instabilities in the solutions of the
equations or in the complexity of the equations themselves. In
cases where the equations are quite simple, it is these
singularities and instabilities that often spoil accurate
numerical computations of the solutions. The investigator uses
analytical mathematical tools to study the structures of the
singular solutions. In the case of a compressible gas such as
air, for example, he isolates typical singularities (hurricanes,
tornadoes, shocks, etc.) and investigates their individual
structures. The result of the investigation is a clearer
understanding of the worst possible -- most singular --
solutions, or a drastic reduction of complexity, which quantifies
our knowledge of the physics and offers guidance in
high-performance numerical computations of general solutions.
Such results influence scientific areas such as weather
forecasting, alloys, liquid, gases, and liquid crystals, and
provide critical knowledge for the advancement of many
engineering sciences such as solid solution hardening, aerospace
engineering, robot design, and energy-efficient devices. In
addition, the project provides opportunities for advanced
training for graduate students and postdoctoral researchers and
enhances collaboration and cross-training between mathematics,
material research, and physics, creating a foundation for
training students in this broad area.